An Experimental Exploration of Dense Gas Dynamics

CTS-9902126
Brian Argrow/University of Colorado Boulder

Dense gases represent a fluid medium that displays novel properties, e.g. a rare faction shock wave, and potentially important technological attribute. Rankine cycle engines that exploit the non-classical behavior of these dense fluids are one example of the latter. The PI and his collaborators have carried out important initial investigations of these phenomena. The present award is to permit their construction and operation of a shock tube that will be used to investigate negative non-linearity in a single-phase vapor and to examine the properties of a rare faction shock wave.